2-D Quantum Device Simulation using Non-equilibrium Green Functions

The objective of this proposal is to develop a tractable approach for the analysis of two- dimensional quantum which feature sizes < 1000 A. We will base our analysis on the non-equilibrium Green function formalism which can take into account quantum interference, dissipation and electron-electron interactions. We have made significant progress in applying this formalism to realistic device structures. Numerical simulation programs have been developed for one- and two-dimensional quantum devices using a simple model for the electron-phonon interaction. The purpose of the proposed research is to extend this work to include realistic models for the electron-phono and electron-electron interactions. Such interactions are expected to play a significant role in determining the transport properties of devices with dimensions in the sub- 1000 A range.